Presidential Young Investigator Award

Individual-site and individual-species techniques will be developed to elucidate molecular mechanisms of cooperativity in regulatory calcium-binding proteins such as calbindin nd calmodulin. This class of proteins regulates the cellular response to transient calcium fluxes in almost every tissue type. Cooperative calcium binding to these proteins causes large and specific conformational transitions that modulate protein-protein interactions by controlling the sites and extent of their binding to important cellular enzymes or structural proteins. To understand the molecular mechanism of cooperative calcium binding and its ramifications new methods are needed that can probe the intermediate states of binding. One planned approach is to apply the cryogenic isoelectric focusing technique to isolate partially saturated calcium- binding proteins and complexes of calcium-binding proteins with their target enzymes. This will allow the quantitation of intermediate states of the protein assemblies and the determination of which ones are functionally significant. Analysis of these experiments will use non-linear least squares methods to determine model-independent thermodynamic and kinetic parameters. Classical binding methods (such as equilibrium dialysis) and spectroscopic techniques (CD, fluorescence, n.m.r.) also will be applied. Statistical thermodynamic models that will describe the functionally significant properties of the system in terms of the relevant chemical species and the rules that govern transitions between them will be formulated. This will allow a test of whether the identified physico-chemical properties of the system components are necessary and sufficient to account for the biological behavior. It may also assist in design of drugs that mimic these interactions. The coupling of ligand binding and conformational change within the calcium-binding protein and its linkage to assembly of an activated enzyme complex offer many opportunities to test and expand ideas about chemical work, free energy coupling and dynamic control of cellular events. These findings will have broad applicability to other biological systems.